Role of Activin System in GnRH Neuronal Regulation

IBN-9604071 Roberts Normal function of the gonads in mammals requires feedback regulation by the brain and the pituitary gland. During the past 10 years, it has been shown that a protein called activin is produced in the ovaries, testes, and pituitary and that this protein is required for the normal functioning of these reproductive organs. Dr. Roberts recently demonstrated that activin is also produced in the brain and is localized in neural regions known to be involved in the feedback regulation of the hormonal system involved in reproductive functioning. She will now determine whether this activin protein plays a pivotal role in the regulation of the reproductive axis at the level of the brain. Utilizing anatomical techniques, Dr. Roberts will trace activin producing neurons and to determine whether these activin neurons connect and communicate with gonadotropin releasing hormone neurons (GnRH), an important peptide hormone that regulates the release of estrogen and progesterone by the ovary. She will also use isolated GnRH neurons in culture to directly test the effects of activin on these reproductive neurons. The results from these studies will determine whether activin modulates GnRH synthesis and release to help maintain its homeostatic regulation. The new knowledge obtained from these studies will form the basis for understanding the neuroendocrine role of activin in the human reproductive system. This information is crucial for dissecting the basic mechanisms by which the brain-pituitary-gonads work together to regulate the timing of ovulation and thus, could be lead to a better understanding of infertility and its treatment.